Competitive Differentiation in Plants and Limits to Plasticity

The precise nature of controls on species distributions and abundances is the central question in ecology. Our understanding of these controls is essential for managing natural and artificial systems for both diversity and yield, and for predicting and ameliorating the consequences of human impacts, including global climate changes. Biological diversity has traditionally been understood as the expression of ecological differentiation between species. More recent interest in the adaptive flexibility, or "plasticity", of many important species characteristics has raised a fundamental problem; the more plastic a character is, the less it is likely to control species distributions. As a result, a major task for ecologists is to understand the relative plasticity of species characteristics. Previous work suggested that morphology (root--shoot allocation) might be a key inflexible character in understanding the structure and dynamics of vegetation, but a crucial experiment failed to confirm this for a well-studied old-field successional system. This study will test a new hypothesis that physiology (tissue nitrogen concentration) is relatively less plastic than morphology and may then be a key characteristic controlling plant distributions and interactions in this system, and will determine the range of applicability of this hypothesis.